Distributed Computer System Laboratory

This project will provide equipment to establish a distributed computer system laboratory using several workstations in a local area network. This laboratory will be used to teach network communications and distributed control concepts. In the computer networks course the students will design and implement interprocess communications between peer processes on different nodes, interface between adjacent layers of communication systems, interface between the kernel and the communication system and network performance analysis. In the distributed computer systems course, they will implement file servers and compute servers (processor pool) using the client- server model of computing.